An Integrated Head for Optically Assisted (Hybrid) Magnetic Recording

ABSTRACT for Proposal No. ECS-0115836

Hybrid recording is a new recording paradigm that seeks to overcome
fundamental physical limits of existing magnetic and optical recording
technologies. Hybridization combines thermally assisted magnetic writing
with giant magnetoresistive readback, to circumvent the physical limits
of both magnetic and optical recording. This approach breaks the
coupling seen in magnetic recording systems among the size of a bit, the
field required to write it and the length of time for which the
information is stable. Thus, magnetic grains in the medium smaller than
10 nm can be stabilized, which is a critical advance for reaching
densities of 1 terabit/in2 and beyond. These advances will only be
possible, however, if a plausible head design is demonstrated that
integrates magnetic write poles with a localized source (probably
optical) of thermal energy. An essential insight being pursued for this
technology is how to apply magnetic write fields and heat, as well as
perform MR readback with a single packaged device from a single side of
the disk. It is the goal of this project to design, prototype, and test
devices suitable for this application. Specific novel devices that will
be investigated will include two-dimensional mode-index lenses, and
near-field optical antenna structures. The Data Storage Systems Center
(DSSC) at Carnegie Mellon University (CMU) and GOALI collaborator,
Seagate Technology, has extensive experience in the design and
implementation of new head designs. The collaboration on head
fabrication will include a program of co-design with Seagate
researchers, joint wafer fabrication, and post-fabrication modification
of existing heads. It is anticipated that the result of this
academic-industrial collaboration will be a demonstration of a plausible
integrated head design for hybrid recording, which will remove an
important barrier to the advancement and eventual commercialization of
this technology.